Analysis of X-Ray and Related Data from the South Pole Balloon Campaign

This grant will support the continuation of the analysis of data obtained from auroral x-ray detectors that were flown on a series of balloons that were flown from the South Pole Station, Antarctica during the austral summer of 1985-86. The experiment was done in conjunction with the University of Houston. The x-rays that were detected were produced by energetic electrons that were precipitated into the upper atmosphere from the magnetosphere. The data will be analyzed in conjunction with electric field data measured on the same balloons by the University of Houston group as well as with data from a number of ground based instruments such as the University of Maryland riometers, the Bell Labs and University of New Hampshire magnetometers and the conjugate radars at Goose Bay, Labrador and Sondrestrom, Greenland. In addition the data will be compared with the available spacecraft data to determine the conditions under which energetic auroral electron precipitation occurs. The University of Maryland and the proposers are well equipped to carry out this research.